Quantum Unique Ergodicity and Rigidity in Dynamical Systems

ABSTRACT

Quantum unique ergodicity and rigidity in dynamical systems

The research proposed lies at the interface of dynamical systems
and several other mathematical disciplines, and in particular number
theory and the theory of automorphic form. It is well
known that the collections of invariant probability measures and closed
invariant sets for hyperbolic maps or flows is very large; remarkably,
in many dynamical systems of algebraic origin where there are two
(or more) commuting hyperbolic maps or flows it is conjectured that
there are actually very few measures or closed sets invariant under this
bigger action. Substantial progress has been made in the study of such
systems, which has yielded a proof of arithmetic quantum unique
ergodicity of compact arithmetic surfaces, and has given a partial
result towards Littlewood's Conjecture in diophantine approximation.
The author
proposes to build on his research on the various facets of this problem
to further our understanding of this rigidity phenomenon, as well as
to apply these techniques and methods and the methods developed
by other authors towards potential applications in number theory and
other subjects.

In dynamical systems we study evolution of a mathematical system.
Ergodic theory
is a specific flavor of the theory of dynamical systems. The tools of
ergodic theory applied to concrete algebraically defined dynamical
systems can be used to prove theorems and conjectures in other seemingly
unrelated fields, notably number theory. In our previous work we have
shown how these tools can also be used effectively to study problems
motivated by quantum mechanics, specifically the arithmetic
case of the Quantum Unique Ergodicity Conjecture. The
connections that have been found between these special dynamical systems
and problems in number theory, mathematical physics, and automorphic
forms (the study of the spectrum of certain fundamental arithmetic
manifolds)
suggests that this interdisciplinary approach is likely to have additional
applications. In addition to the research itself, substantial effort
will be given to human resources development, particularly at the
graduate level.